High-speed and High-quality of Service Wireless Communications in Outdoor Environments Through Realistic Test Bed for Transmitter, Channel and Receiver

9979413
Uslenghi

The framework of this project is the third generation (3G) wireless system, which is presently undergoing its standardization process worldwide. A few milestones have already been agreed upon: it will provide high-speed, high quality of service (QoS) capabilities to support Intemet and intranet data applications. The main system characteristics will focus on the Code-Division Multiple Access (CDMA) and "turbo codes". In 3G system, industry is primarily interested in data services that should be packet-switched with data rates of 144-384 kbps, in the outdoor environment. Data services should be asymmetric (e.g., different rates on uplink and downlink).

During the standardization process, a few problems have emerged:
The difficulty of estimating by reliable simulations the low bit (and frame) error rates (BER,
FER) - matching the required QoS with a realistic model of the multipath fading channel;
The "error floor" phenomenon showed by turbo codes, which might prevent from reaching
BER below 10'6.
The goals of this project consist of:
Proposing and investigating a simple, yet realistic and flexible, channel model on which all
system simulation will be conducted; Verifying experimentally he propagation model using an anechoic chamber recently installed at UIC and comparing the channel model with others already in use; and Setting up a virtual test bed based on very fast multiprocessor digital signal processor (DSP) boards, which will simulate the overall system with the goals of testing with fast simulation several code alternatives to achieve very low BER (10-8) and FER (< 1%).

The realistic channel model will be derived by extending the previous propagation prediction
model that uses ray-tracing methods to a realistic environment in order to extract information on
both fading and time-delay for each component of the multipath. This information will be used to
compute the parameters for identifying the channel. A related activity will be the experimental f
verification of the propagation model using the UIC anechoic chamber.
***